MRI: Acquisition of a shared mobile EEG for research and undergraduate training at Occidental College

Scientists are increasingly using neural recording techniques to study how and when perceptual, cognitive, and emotional processes unfold in the brain over time. Electroencephalography (EEG) is a non-invasive technique for measuring electrical activity of the brain, with extraordinary temporal precision. With the support from the Major Research Instrumentation Program, the investigators will purchase a state-of-the-art high-density, mobile EEG system for shared use by the faculty and students at Occidental College. The mobility of the EEG system provides an exciting opportunity to investigate perception and cognition both within a laboratory and in naturalistic settings outside of the laboratory. The acquisition of this system will also allow the investigators to foster unique research opportunities for a diverse group of students at the undergraduate level. Faculty and students will be involved in a dynamic, interdisciplinary research program, with investigations of topics such as multisensory perception, time perception, art perception, attention, emotional processing, language processing, and music cognition. The system will also serve as a key instrument for establishing undergraduate training in the cognitive neurosciences at Occidental College and will be integrated into coursework. Participating students will develop a broad range of skills relevant for both graduate study and participation in the STEM workforce, including strong data analytic and computational skills. As the student population at Occidental College is very diverse, the investigators aim to broaden participation of underrepresented groups in the sciences.

The investigators involved will launch several research programs in a broad range of areas within the cognitive sciences, with the goal of expanding opportunities for student research and for multi-disciplinary collaboration across the College. Research project 1 aims to understand how sound can be used to synchronize neural activity across a pair of individuals and whether and how neural synchronization causally influences behavioral coordination. Research project 2 will investigate art perception to understand a) how internal states such as current mood may systematically drive attention toward specific features of an artwork, b) what type of neural response is associated with profound aesthetic experiences from viewing art compared to viewing non-art, and c) the extent to which the neural response associated with aesthetic experience is similar across art modality (e.g. visual art, music, literature). Research project 3 will explore mechanisms underlying temporal perception and how information is transferred across sensory modalities, to address fundamental questions about the multisensory organization of the brain, and will help provide a better understanding of how the brain represents time. Research project 4 will compare the time course of language processing and syllabic stress encoding in English and Spanish speakers to examine processing differences between heritage speakers and monolingual speakers of Spanish. Research project 5 aims to understand the role of consciousness in emotional processing by simultaneously measuring skin conductance response, cortical event-related potentials, and conscious expectancy of an unconditioned stimulus in a backward masking paradigm.